Proton-Antiproton Total and Elastic Cross-Sections at Very High Energies

This award covers experimental Elementary Particle Physics Research by a group at Cornell University in collaboration with other NSF and DOE supported scientists. The group will continue studying very high energy antiproton- proton scattering at the Fermilab Tevatron Accelerator. The proposal includes the construction of a new small angle particle detector using the emerging scintillating fiber technology.